Engineering Research Equipment Grant: Scanning Electron Microscope with Tensile/Heating Substages

This research equipment award is made to partially fund the purchase a scanning electron microscope and accessories. The equipment will be used to enhance the micromechnical research in ceramic composites at high temperatures.